Applications of Fourier Transform Infrared Spectroscopy in a Novel Integrated Chemistry Laboratory

There have been numerous attempts to create laboratory exercises that integrate the concepts of physical, analytical, organic, and inorganic chemistry. Most of this work concentrates on pre- planned labs where the answer is known. However, true chemical research relies not only on the integration of the concepts, but also on the ability to work on problems where the answer is not known a priori and where working effectively within a team of researchers is vital. The objective of this project is the continuing development of an integrated lab sequence which incorporates concepts from organic, inorganic, physical, and analytical chemistry into projects involving original research ideas. Students work in teams of four or five, each team including both organic chemistry and physical chemistry lab students. Each student brings his or her particular skills and background to the research group, and the resulting combination of skills and personalities often results in novel and original research. Majors in chemistry take the integrated laboratory sequence twice, as part of their organic chemistry and physical chemistry lab courses. Research that has already been performed under the rubric of the integrated laboratory include sonochemistry, synthesis of buckminsterfullerene, synthesis of water-soluble polymeric dyes, and synthesis and testing of conductive polymers. Students are not only able to do better research, they are also able to gain valuable experience in using instrumentation they are likely to encounter in their professional careers. The integrated laboratory sequence provides a means for students to obtain expertise in applying their knowledge of chemistry to real-life problems.